Ethnic Minority and Women's Representation in Congress: The Role of Congressional Caucuses

9411519 K. Williams This Minority Research Initiation Planning Grant affords the Principal Investigator the opportunity to plan a project looking at legislative decision making within the Congressional Black Caucus and the Women's Caucus. Employing a principal-agent framework the Principal Investigator will develop a project looking at the relationship between caucuses and interest groups. The objective is to establish a way of assessing how effective caucuses are in passing legislation which has been drafted by associate interest groups.